NSF FF: Planning: M-CONNECT: AI-Enabled Dashboard for Teachers and Families towards Supporting Student Motivation in Middle School Science

This FINDERS Foundry award supports the creation of an AI-enabled dashboard that helps middle‑school students stay engaged during science lessons by improving communication between teachers and families. Students often lose motivation as science becomes harder, and adults do not always know when support is needed. This project will design an AI‑enabled dashboard that shows real‑time insights into how students are feeling and participating. The tool will help teachers notice changes in motivation and help families understand how to encourage their children at home. Co‑designed sessions with teachers, parents, and students will guide the dashboard so it is clear, respectful, and helpful. By giving adults timely information, the project aims to help students stay confident, persistent, and connected during an important stage of their science education.

This FINDERS Foundry award aims to translate students’ in-the-moment motivational experiences into meaningful insights through an integrated AI dashboard system. The dual integration features teacher‑ and parent‑facing views supported by an AI‑interpretation layer that transforms student‑feedback data into actionable instructional insights. The project will investigate responsible data‑collection and sharing practices, focusing on how motivational indicators can be presented in developmentally appropriate and pedagogically meaningful ways. Co‑designed sessions with educators, students, and families will inform the creation of metrics, user requirements, and prototype interfaces aligned with science standards. Technical outputs will include wireframes, a feasibility memo, and early design principles that guide future development of scalable systems aimed at strengthening student motivation and broadening participation in STEM. The planning phase will lay the groundwork for a coherent, ethically grounded analytics platform that connects classroom and home learning.